Optical Techniques and Materials for Nonlinear Imaging and Propagation

This effort is a study of the interactions of lightwaves with various types of materials, most notably crystals, and fibers. Attention will be focused on the processing of images and basic optical logic operations. Processing of images relates to the ability to obtain an image from a relatively bright background or other source of noise or the ability to abstract certain desired features from an image. Other investigations which will be pursued include the ultimate limits which might be achieved in switching of an optical beam either on or off, or in direction. The ultimate limits refers to minimum power or energy and the minimum time needed to do this.